Studies on Large Scale Structures and Dark Matter

Theoretical research in astrophysics will be concerned with the large scale structure of the universe and with the nature of the dark matter in the universe. The astrophysical production of axions, which could be a dominant component of the dark matter, will be probed. The generation of primordial density fluctuations (which could eventually lead to the presently-observed large scale structure) by topological defects such as magnetic monopoles will be studied. The possibility that some of the observed large scale structure is not real but a result of the limitations of observing techniques will be explored. These projects are important to our efforts to understand the large - scale nature of the universe.